Constraint-Based Languages and Environments for Building Interactive Systems

9302249 Borning This is the first year of a three-year continuing award to investigate the use of the constaint-based languages and systems and their hirarchies in interactive interfaces. Four specific constraint-based language and environment areas are targeted in this project: 1) the study and development of efficient incremental constraint satifaction alogrithms, including algorithms for systems with cycles and constraints with multiple outputs, 2) the improvement of debugging tools and techniques for constraint satisfaction systems, 3) the integration of the constraint-based language use with an object-oriented imperative language, and 4) the testing and validation of results from the three previously mentioned research areas in an exploratory interactive application such as a how-things-work electronic encyclopedia.